Planning Grant for Joining the NSF Center for Information Protection I/UCRC

This planning grant serves to establish the basis for the University of California, Davis to join the existing Industry/University Cooperative Research Center for Information Protection. The Center currently consists of Iowa State University and the New Jersey Institute of Technology. The University of California, Davis will bring industries and other organizations together to define a research agenda that will meet the objectives of all parties. This agenda will advance the capabilities of the non-academic participants by providing them with research results to enhance their products and activities, as well as an opportunity to interact with faculty and students at UC Davis.